Causation and evolution

This is a project to investigate the extent to which recent and influential work in philosophy of science on the theory of causal explanation sheds light on the explanatory character of natural selection. Evolutionary explanations such as the following are commonplace: 'Thick-furred polar bears were fitter than thin-furred ones because of greater insulation, and this explains why polar bears have thick fur today.' The orthodox view, in both science and philosophy, is that they show natural selection to be a cause of biological outcomes. However, that orthodoxy has recently come under sustained attack. In particular, it has been argued that natural selection should instead be seen as a mere statistical summary of the operation of other causes, as in the case of life expectancy.

A core element of the project will involve getting straight on the many senses of fitness. The fundamental conundrum is that 'fitness' as understood by modern population genetics is defined in terms of outcomes, suggesting it is then circular to invoke fitness also to explain those very same outcomes. 'Survival of the fittest' becomes an empty tautology. The PI will examine whether the various different senses of fitness in the literature can be shown, at least in some circumstances, to be causally related to each other in the necessary way. An analogous controversy surrounds another basic evolutionary process, namely genetic drift. The reward for applying relevant philosophical theory there promises to be a series of surprising results about just how much drift does and does not really explain.

By bridging the gap between the foundations of biology literature and the philosophical literature on causation, the PI hopes to clarify contentious discussion about the interpretation of evolutionary theory. Many other debates in philosophy of biology could be transformed by the outcome of this project, given its fundamental character. The PI also expects that the project will serve to foster links between different areas of intellectual enquiry; it could inspire applying ideas from the causal explanation literature to illuminate foundational issues in other scientific areas.